A Laboratory for Programming Languages and Software Systems

This award provides infrastructure support for ten research projects, with the primary research areas being parallel and distributed processing, and programming languages. Other significant research areas are fault-tolerant programming, algorithms and software for molecular genetics, graphical user interfaces for scientific visualization, and object-oriented and deductive database systems. Specific research projects in the general area of parallel and distributed processing include: 1. development of tools to aid in designing and developing algorithms for parallel and distributed systems, with emphasis on high- level tools for relatively naive users, 2. research on language mechanisms and implementation techniques to facilitate programming computations that execute efficiently on shared-memory multiprocessors, 3. development of techniques for compiling concurrent programs written using shared variables into programs that execute on multicomputers or on multiprocessors with non-uniform memory access time, 4. research on a configurable operating system kernel, called the x-kernel, in which communication protocols define the fundamental building block, and 5. development of analytic methods for evaluating performance of parallel asynchronous algorithms and applying the methods to the analysis of particular parallel algorithms running on various multiprocessor architectures. The research on programming languages includes: 1. development of the Icon programming language, a high-level language with facilities for processing nonnumeric data, and 2. development of effective compilation techniques for logic programming languages. Equipment to be obtained for the research includes a Hypercube upgrade, a shared memory multiprocessor, high-end graphic workstations, and optical disks.